Direct absorption spectroscopy of individual nanostructures

Masaru K. Kuno at the University of Notre Dame is supported by the Macromolecular, Supramolecular and Nanochemistry Program in the Division of Chemistry in work addressing an existing need in the nanoscience community to conduct the direct absorption spectroscopy of individual nanostructures. While robust techniques now exist for measuring the emission intensity and spectrum of individual molecules and nanoparticles, entire classes of materials exist that are non-fluorescent or which possess low emission quantum yields. These species are therefore invisible to current single molecule imaging techniques. Apart from developing single nanostructure absorption methodologies, one of the primary goals of the work will be to measure the length-dependent absorption spectrum of single CdSe nanowires and nanorods as the system transitions from a 1D to a 0D (quantum dot) system. This will allow us to fully map out the competition between confinement, dielectric contrast and dielectric confinement in this (or any other) low dimensional system for the first time. We will furthermore investigate the defect absorption of individual nanostructures such as CdS nanowires where an apparent Urbach tail exists in the ensemble extinction spectrum. These defect studies touch on an important, yet underserved, area of modern nanoscience, given the enhanced surface-to-volume ratios of low dimensional materials and the important role played by defects in influencing their optical and electrical properties.

There have been two decades of research devoted to detecting individual molecules and nanostructures. The motivation for such studies has been to find ways to probe the individuality of these species. In this regard, just like we all like ice cream, the above research essentially aims to find out why you like vanilla best whereas I like chocolate. Unfortunately, nearly all existing single molecule detection techniques rely on monitoring the emission of the probed species. The problem then is that not all molecules (or nanostructures) are emissive. Hence we must find new ways to study them. One of the most universal, yet challenging, approaches to do this involves looking at their absorption. This is the topic of the proposed research and, by successfully achieving this goal, we believe that we will learn important new physics about the fundamental behavior of semiconductor nanostructures underpinning modern nanoscience. The proposed work also ties into the PI's educational initiatives in undergraduate education, which focus on increasing student interest in nanoscience and microscopy through the development of new laboratory modules. Finally, the study aids the training of domestic graduate students in an important area of future science and technology vital to US national security.